CAREER: Novel Data Mining Technologies for Complex Network Analysis

The long-term research goal is to develop novel data mining
technologies to elucidate the structures and dynamics of complex
but ubiquitous networks. A complex network is a large system
of elements (vertices) that are joined by non-trivial relationships
(edges). Examples of such complex networks include the WWW,
metabolic and protein networks, social networks, and economic
and financial markets. The underlying principles and laws of these
network systems can help us construct more effective
communication mechanisms, find cures for fatal diseases, and
deal with economic crises.

In spite of the significant advances that have been made towards
understanding the fundamental laws that govern the structure and
behavior of complex networks, there is still a disconnect between
current analytical techniques and their applicability to real-world
complex networks. A principled approach is lacking to systematically
analyze a single large complex network and link system behaviors to
network structure. There is also immediate and crucial need for a
theoretical framework to understand the relationships between
multiple networks, which is the key for comparative network analysis.
How to integrate and leverage the rich system data, such as
measurement time series, associated with network topology to study
complex systems is still an open question. This project addresses
these issues by: 1) developing novel graph and information
theoretical approaches to extracting network backbones which both
simplify and highlight network structures; 2) developing information
theoretical network distance measures and clustering algorithms for
comparative network analysis; 3) applying causality inference and
network modularity to integrate time series with network topology.
The proposed mining methodologies build upon an innovative blend
of graph theoretical, information theoretical, and statistical learning
concepts and techniques, and can greatly expand the reach of
data mining. This project will also help us better analyze the
emerging complexity, heterogeneity, and large scale of real-world
complex network data.

In a close collaboration with domain experts from social and political
sciences, software engineering, and bioinformatics, the proposed
techniques have the potential to help understand how human society is
organized at the individual level (social networks) and organizational
level (political science); illuminate how large scale software systems
form and evolve; reveal the organizational principles of biocellular
systems in a dynamic environment; and identify therapeutic or drug
targets. Using the popular online social networks, such as MySpace
and Facebook, as ``hooks'', this project will attract, recruit, and
prepare students from underrepresented groups including women
and minorities to computer science and involve underrepresented
students in the cutting-edge research.

For further information see the project web page at:
http://www.cs.kent.edu/~jin/NSFCAREER/